Estimating Software Effort Completion

This project, "Estimating Software Effort Completion", will develop and extend a technology to avoid costly software project budget overruns. The technology, Effort Completion Estimating, is based on a mathematical modeling technique called Element Association Matrices. The fully developed technology would allow software project budgets to be better estimated in advance and effectively managed while in-process. It would also allow selecting which changes can be made to software without risking system instability. The objectives of the project are to identify critical cases for the mathematical technique, search for quantitative methods to replace subjective assessments, identify the theoretical or empirical statistical distribution of the modeling technique, and test predicted results with expectations.